Implementation Techniques for Parallel Logic Programming: Systematic Development of Parallel Prolog Engines

An important property of logic programming languages, such as Prolog, is that their declarative semantics is largely independent of the order of execution of different operations in the program. The different operations can also be performed in parallel. As a result, it is possible to exploit substantial parallelism from Prolog programs, written for sequential machines, without making any modifications to them. There are various forms of implicit parallelism found in Prolog programs: or-parallelism, independent and-parallelism, dependent and-parallelism, stream and-parallelism, data or-parallelism, data and- parallelism. Research so far has only focused on exploiting a single form of parallelism. This project's objective is to parallel implementation techniques that will allow one to extend a high performance sequential Prolog system to exploit the various forms of parallelism simultaneously. The focus of this project is upon self-contained parallel implementation techniques that are simple and that will allow addition of the various forms of parallelism to an existing sequential Prolog system in a systematic and incremental way. The techniques to be developed here will be tested and demonstrated for efficacy by incorporating them in the SICStus sequential Prolog engine. Relevant tools for compile-time analysis will also be developed. General runtime optimization techniques for reducing the parallel implementation overhead will also be researched. ***